Statistical Modeling with High-dimensional Data: Variable Selection and Regularization

With high-dimensional data parsimonious models are preferred because they are much more interpretable and at the same time reduce prediction errors. Regularization is also an essential component in most modern
developments for data analysis, in particular when the number of predictors is large. Non-regularized fitting is guaranteed to give badly over-fitted and useless models. The investigators take a regularization approach to the variable selection problem in high-dimensional statistical modeling such that the resulting model enjoys excellent prediction accuracy and at the same time has a sparse representation. In particular, the investigators develop: (1) new fused variable selection methods in proteomics data analysis which has been a
revolutionary cancer diagnostic tool; (2) a novel kernel logistic regression model which automatically adopts a support-vector representation; (3) several new techniques for performing simultaneous variable selection in estimating multiple quantile regression functions. The investigators also study the theory of these new variable selection techniques. Efficient algorithms and software are developed for public use.

Modern scientific innovations allow scientists to collect massive and high-dimensional data. It is critical in scientific investigations to extract useful information from the huge amount of data. For this reason, variable selection and dimension reduction play a fundamental role in high-dimensional statistical modeling. Variable selection problems arise from a wide range of fields, machine learning, drug discovery, biomarker finding, genetics, proteomics, brain imaging analysis, financial modeling, environmental sciences, to name a few. The research project aims to develop state-of-the-art statistical tools that help researchers in various fields to analyze their data.